Variational Structure of Collisions in the Three-Body Problem

Abstract

Award: DMS-0072336
Principal Investigator: Richard W. Montgomery

The principal investigator will search for new solutions to the
Newtonian N-body problem using a combination of the direct method
of the calculus of variations, a detailed knowledge of ``shape
space'', and a careful investigation of the action functional
near collisions of the bodies. By the ``shape space'' we mean
the space of either similarity classes or congruence classes of
N-gons. In recent joint work with Alain Chenciner, this
three-pronged approach proved its utility by yielding a hitherto
unknown orbit for the three-body problem. In our new orbit all
three masses chase each other around the same figure eight shaped
curve in the plane. Our orbit turns out to be dynamically
(actually KAM) stable. The chief technical difficulty to be
overcome in successfully applying the method is that of avoiding
collisions between the masses. Unlike the action in problems
with strong-force potentials, the action with the Newtonian
potential admits finite-action solutions with collision. One
knows very little about minimizers with collision. In particular
they need not be regularized in any of the various senses. The
proposer will focus on the collisions. If an action minimizing
sequence tends to a curve with collisions, under what
circumstance are those collisions Levi-Civita regularized? Are
there blow-up techniques which will enable us to better
understand such sequences tending toward collision? These are
some of the questions we will consider.

The three-body problem is the problem of understanding the long
term behaviour of three masses (planets, stars, satellites)
attracting each other according to Newton's laws of physics. It
is one of the oldest problems in mathematics,dating back to
Newton. About 100 years ago the French mathematician Poincare
made fundamental progress. He showed that chaos exists in the
three-body problem, in contrast to the the two-body problem,
where the motions are very regular (and well-approximated by that
of the earth around the sun). He also pointed out the central
importance of periodic orbits to the problem. Periodic orbits are
motions of the masses which repeat the same pattern indefinitely
like a point going around a circle. We propose to find new
periodic solutions to the three-body problem and the N-body (N is
four, five, six,...) problem by using a combination of
methods. The methods themselves are not new, but their
combination is. This approach has already proved successful in
one instance -- by yielding a new solution in which three equal
masses chase each around a figure eight curve, never catching
each other. Our work could lead to further significant advances
in the understanding of the N-body problem. The techniques may
prove to be useful in other dynamical situations. There is some
possibility that our orbits might be found to exist somewhere in
the universe, or used in space missions someday.